Symposium: The Biology, Ecology, and Physiology of Zebra Mussels, St. Louis, Missouri, January 1995

9416907 Ram This symposium focuses on the biology of zebra mussels. Zebra mussels are recent invaders of North American fresh- water ecosystems, carried here in 1986 from Europe in ballast water of a ship that flushed its ballast tanks into Lake St. Claire near Detroit, Michigan. Zebra mussels settle in large numbers on hard surfaces and grow rapidly, so that they often coat underwater structures and displace native freshwater mussels. Zebra mussels have received a great deal of attention because of their economic impact as fouling organisms, but very little research has been directed toward understanding of their basic biology. The symposium gathers scientists to summarize and discuss current research into the biology, ecology and physiology of zebra mussels. The participants include two female and eight male scientists who study zebra mussels, drawn from both academic and management organizations, The proceedings of the symposium will be published in the American Zoologist, a major research journal. The result will be a relatively complete and accessible summary of the basic biology of a species that is an economically and ecologically important invader into North American streams and lakes.